A Parallelization Facility for Handling Irregular Grid Problems

9361742 Levesque This project is to develop runtime analysis tools that can examine the data distribution of a program, and establish a communication pattern for transferring the data between processors. Additionally, it will be important to supply the user with a facility to arrive at an optimal decomposition of data on irregular grids across the parallel system. The success of this project will assure the availability of powerful parallelization tools for converting large FORTRAN applications to massively parallel processing more viable for users from many application areas. ***